Travel Support: The Seventh Congress of the International Federation for the Theory of Machines and Mechanisms September 17-22, 1987 - Seville, Spain

This project provides travel support for 20 American machine theory experts to attend the Seventh Congress of the International Federation for the Theory of Machines and Mechanisms in Seville, Spain during September 17-22, 1987. It enables significant international technical exchange in an area with a major impact on productivity and international competiveness. The principal investigator is a major contributor to machine theory and strongly qualified to properly implement this project. An award is recommended.